Prescription Of Initial Data With Small Radiation Content For Characteristic Evolution

***
9803301
Fritelli
There is much research currently underway in carrying out numerical simulations of isolated systems with strong gravitational fields, both to study their dynamical behavior and to extract out the gravitational radiation created by their motion. The description of such systems requires the solution of Einstein's system of nonlinear partial differential equations.

Professor Fritelli will initiate a new research program, which will examine the foundations of numerical simulations. She will cast the Einstein equations in symmetric hyperbolic form, familiar to applied mathematicians and numerical analysts. In this form, known powerful mathematical techniques can be brought to bear to study both the analytical and numerical properties of solutions to Einstein's equations. This will illuminate the propagation of gravitational waves, and the control of numerical errors in computer simulations.
***